Collaborative Research: VINES: Track 1: FieldAware: AI Native Hybrid-field Networking for Connected Autonomous Systems

Connected autonomous mobile systems such as drones and robots need fast and reliable wireless communications. At high radio frequencies, wireless signals behave differently when a machine is in the near-field region close to a base station (BS) versus when it is in the far-field region distant from a BS. This project develops a wireless networking framework to improve the communication performance of autonomous mobile systems that accounts for both near-field and far-field signal propagation characteristics. By integrating AI-driven networking, sensing, and automated decision making, the project advances next-generation wireless networking techniques. In addition, the project trains graduate and undergraduate students in wireless systems, artificial intelligence for networking and sensing, and hands-on experimentation.

As carrier frequencies and antenna array apertures increase, the near-field region expands, and mobile machines frequently transition between near-field and far-field regions, creating a hybrid-field network. This project aims to advance the theory and practice of hybrid-field networking through three thrusts: thrust 1 develops field recognition and link establishment techniques, including characterization of the near-field and far-field boundaries and transitions, hybrid-field beam-training and wideband beamforming methods, and integrated sensing and communication (ISAC) for object detection and spatial awareness. Thrust 2 develops AI-native network control and resource management schemes based on distributed machine learning models to automate field recognition, trajectory design, beam alignment, communication and sensing resource allocation, and spectrum decisions. Thrust 3 integrates and evaluates the proposed solutions through simulations and testbed experiments.